Improvement of the Undergraduate Analytical Chemistry Curriculum through the Introduction of Atomic Absorption/Flame Emission Spectrophotometry

The undergraduate analytical chemistry curriculum is being enhanced by incorporating state-of-the-art atomic absorption/flame emission instrumentation into the laboratory courses at the lower level for both majors (quantitative analysis) and non-majors (introduction to analytical chemistry). At the same time, this project is facilitating instruction of majors in the upper division courses in instrumental methods and undergraduate research. The spectrophotometer affords a number of capabilities not previously available to students in these courses, for example, flameless atomization, background correction, data storage, editing and reporting, and software control. This is providing a wide variety of student experiences, from fundamental to complex to emphasize both function and application. The grantee is matching the award from non-Federal sources.